Berkeley Particle Data Center

This award will provide partial support to a group of physicists at the Lawrence Berkeley Laboratory, Berkeley CA, who are members of the Berkeley Particle Date Center, Headquarters of the International Particle Data Group. The primary task of the center is to provide researchers with compiled and evaluated information on particle properties and related areas. This information is made available to about twenty thousand researchers, teachers and students through the biennial publication of the "Review of Particle Properties" and the "Particle Properties Data Booklet." The Center also produces other compilations of value to particle physicists: "Major Detectors in Elementary Particle Physics"; "Current Experiments in Elementary Particle Physics" and "Guide to Data in Elementary Particle Physics".